Acquisition of Instrumentation to Examine Anthropogenic Effects on Biodiversity and Ecosystem Function in Southcentral Pennsylvania

Due to the pattern of human occupation and land use in Lancaster County and Southcentral Pennsylvania, where nearly two thirds of the land is in agricultural use, significant populations of native species are restricted largely to forested areas on the low mountains in the northern portion of the region and riparian forests in the southern portion. The first goal of this research project is to examine selected elements of the biodiversity of riparian forests of southcentral Pennsylvania in an attempt to understand the nature and distribution of organisms and the impact of continued human expansion and growth on population densities and reproductive successes of these nonhuman species. Instrumentation acquired through this research proposal will greatly expand the research capacity of the Department of Biology at Millersville University in order to pursue the following specific topics dealing with biodiversity: 1. the genetic diversity of populations of rare-endangered ferns, Vittaria and Trichomanes 2. the distribution of rare-endangered plants in Southcentral Pennsylvania 3. the impact of habitat fragmentation on mammal and bird populations 4. the composition and distribution of riparian plant communities in the southern Susquehanna River drainage. Many of the problems of poor water quality, environmental degradation, decline in beds of submerged aquatic vegetation, and reductions in population densities of valuable fishery species, including shellfish, in the Chesapeake Bay have been attributed to high inputs of plant nutrients, such as phosphorus and nitrogen from non-point sources in the Susquehanna River drainage. Agricultural fertilizers and manures from livestock account for 75% of the phosphorus and 50% of the nitrogen entering the Chesapeake Bay. With nearly 400,000 acres of agricultural land, over 600,000 cows, steers and pigs, and over 55,000,000 chickens, Lancaster County's contribution to the non-p oint source pollution of the Chesapeake is huge. The vegetation of riparian forests has been identified as one type of buffer reducing this pollution by trapping eroding soil and absorbing soluble nutrients. Once in the aquatic environment the nutrients stimulate alga blooms, which reduce water quality; a major factor in the degradation of the Bay. The second goal of this proposal is to examine biological activities in the riparian forest and aquatic ecosystems which might reduce the quantity of nutrients flowing into the water or control alga populations that reduce water quality. Acquisition of equipment will facilitate research in: I. restoration of aquatic ecosystems through viral control of alga blooms 2. effects of plant root systems and the associated mycorrhizal fungi on nutrient flow through raparian vegetation. Acquisition of the requested equipment will greatly expand opportunities for undergraduate students to become involved in research projects at Millersville University. After graduation, many undergraduates from Millersville University pursue scientific careers through graduate studies at large research universities. Acquisition of research equipment will facilitate undergraduate research and nurture aspirations of careers in science.